Quasi-Low-Dimensional Reduced Transition Metal Compounds: Synthesis and Characterization

Greenblatt 9613106 The object of this project is the synthesis and characterization of new, reduced-transition metal compounds with quasi-low-dimensional properties. Systems of interest include 1) transition metal (Ta and W) bronzes; 2) niobium, and rhenium cluster compounds; and 3) transition metal chalcogenides with ThCr2Si2 structures. The focus of the experimental program is to synthesize new materials of strongly correlated electron systems that are on the verge of electronic and structural instabilities, and to fine-tune the competing electronic interactions through the unstable region in a controlled way. Particular emphasis will be placed on the preparation of single crystal specimens to study the structural and orientation-dependent physical properties. %%% Transitions associated with the onset of charge-density waves (CDW) and/or super-conductivity will be sought and characterized. These studies are expected to yield novel materials, provide fundamental insights into correlated electronic behavior and ultimately allow the enhancement and control of electronic instabilities that lead to interesting and useful macroscopic properties. ***